Demonstrational Interfaces for Visualization and End-User Programming

IRI-9319969 Myers This is the first year of a three year continuing award to investigate architectures for script-based and object-based demonstrational programming interfaces and their use in visualization. The overall concept of demonstrational interfaces is to allow the user to operate on example values from which the system generalizes. The approach of script-based interfaces, as contrasted with object-based approaches, lends itself to generalization when a specifically given script trace is extended to other cases. The object-based approach is investigated as it relates to data visualization by generalizing the properties of the data and the typical graphics used in the domain. The ultimate goal is to make the design of a custom interface as simple as sketching a picture on a napkin.